Collaborative Research: Potential Cambrian Stratotypes, Western Hunan, China

Well-exposed, thick, marine stratigraphic sections with an abundance of both endemic and cosmopolitan Cambrian fossils are present in western Hunan, China. Such sections are exceptionally rare for the Cambrian System. Detailed collaborative study of the paleontology, biostratigraphy, and depositional environments of these Chinese sections is proposed. Reconnaissance sampling will also be made for stable-isotope analyses. With such study, the sections are expected to become important references for global biostratigraphic correlation, and possible stable-isotope correlation. They also are expected to be strong candidates for selection by the International Commission on Stratigraphy as world stratotypes for some stage and series boundaries within the upper half of the Cambrian System, and possibly as a stratotype for the Cambrian-Ordovician boundary.